CSR: Medium: Collaborative Research: Enabling GPUs as First-Class Computing Engines

Graphics Processing Units (GPUs) are rapidly bringing the computing
power traditionally associated with massively parallel supercomputers
into the mainstream devices we use today. They have the power to
revolutionize computing by enabling orders of magnitude faster and
more efficient execution of many applications. Unfortunately, many
modern applications and users cannot take advantage of the computing
capability present in today's GPUs because today's GPUs are used as
secondary devices to the much less powerful CPUs. As a result, the massive
computing power of GPUs gets wasted and underutilized for a large
number of important applications.

This project aims to take a fresh and comprehensive look at GPU design
with the goal of enabling GPUs as first-class computing engines that
can benefit an overwhelming majority of real-world applications and
users. To this end, this project systematically investigates the
hardware/software design space of three new execution models, which
progressively turn a GPU into an independent, first-class compute
engine in a hybrid computing system: 1) an enhanced master-slave model
where the GPU is able to perform multiple-application execution, 2) a
new peer-to-peer model where the GPU is autonomous of the CPU, 3) a
hybrid model where GPUs and CPUs are integrated on the same die and
are equals from the applications' and system's viewpoint. The project
comprehensively develops software, hardware and software/hardware
cooperative scheduling, resource management, and system design
techniques for all three models.

If successful, this project can pave the way to making GPUs
first-class computing engines used in all aspects of our everyday
lives for a majority of applications. Doing so is not only expected to
lead to much higher degrees of energy efficiency and user productivity
but can also potentially enable new applications and devices that can
take advantage GPUs.